MIT Laser Research Facility

This renewal award, with participation by the Divisions of Chemistry, Materials Research, Physics and Biological Instrumentation and Resources made to the MIT Laser Research Facility will provide core support for thirteen Chemistry and Physics faculty. A number of new collaborative research projects will be started. In physical chemistry, these include development of modulated-spectroscopy techniques, with application to two dimensional optical spectroscopy and free radical detection; exploration of singlet and triplet molecular potential surfaces at high levels of excitation; and collision processes involving vibrationally excited atmospheric species. Fundamental physics studies will include atom-cavity quantum electrodynamics and explorations of quantum chaos in Rydberg atoms. In materials science, quantum crystallites, surface-functionalized quantum particles, and acoustic properties of polymer films will be investigated. Studies of enzyme model systems, including methane monooxygenase and ribonucleotide reductase, and the mechanisms of light transduction in photosynthesis and visual pigments will be the focus of research in biological and inorganic chemistry. All of these projects require the high resolution, multiple-laser, and/or ultrafast-pulse equipment provided by the facility. %%% This facility also provides students with hands-on experience and training in advanced spectroscopic techniques. The interaction of the investigators leads to new collaborations and research programs which would not exist in the absence of the facility